GOALI: Modeling the Industrial Growth of CdZnTe Substrate Crystals

ABSTRACT

Proposal Number: CTS-0201486

Principal Investigator: Jeffrey J. Derby, Podromos Daoutidis, and Csaba Szeles

Institution: University of Minnesota

Proposal Title: GOALI: Modeling the Industrial Growth of CdZnTe Substrate Crystals

The proposal is for a cooperative program between investigators at the University of Minnesota and eV Products to develop, validate, and apply new theoretical models for vertical Bridgman growth of cadmium zinc telluride (CZT), a semi-conductor material important in infrared and nuclear detector applications. Specific tasks include model development for vertical Bridgman growth, assessment of process improvements that may be expected from crucible rotation techniques, and the application of model based control strategies for melt-crystal interface shape and for suppression of flow instabilities and compositional inhomogeneities. The research program will combine experimental and process development expertise at eV Products with the theoretical computational capability and advanced control algorithm development at the University of Minnesota. If successful, the results could lead to better process operation and design for a broad spectrum of crystal growth systems, yielding better quality crystals at higher production rates and lower costs.